ITR/SY: Computational Logic Tools for Research and Education

Formal logic is an extremely powerful and general conceptual tool that
can be made even more useful if it can be manipulated computationally.
Since computational logic is often difficult to implement and
computationally expensive, progress on automating it has lagged
somewhat. However, the problems and their solutions are becoming
better understood and computational power has continued to advance
exponentially, so the possibility of developing practical
computational solutions to many interesting logic problems is now
potentially solvable.

There are three themes to the project: computational logic components,
educational applications, and systems applications. The first theme
encompasses both the theoretical research and implementation work
necessary to develop practical software components for manipulating
logical representations at several levels of abstraction, including
decision procedures for fragments of first order logic and automated
deduction for first-order logic. The second theme involves the use of
computational logic for computer-assisted analysis of designs in three
application areas of critical importance: networking, hybrid systems,
and computer security. The third theme is the development and use in
the classroom of instructional courseware for mathematical concepts
relevant to computer science. This work is in collaboration with
Stanford's Educational Program for Gifted Children (EPGY).

The impact of this work follows from making computational logic
accessible and available. Computational logic components will make it
easier to construct sophisticated software applications, by providing
powerful off-the-shelf building blocks for solving problems that would
not otherwise be tractable. Improved analysis tools and techniques
will result in superior system designs achieved faster and at lower
cost. Instructional software will enhance the sophistication and
problem-solving abilities of computer science students.